Center for the Management of Information

The Industry/University Cooperative Research Center (I/UCRC) for the Management of Information at the University of Arizona has been an I/UCRC for the past five years and will continues to follow the model of the I/UCRC program. The Center's goal is to create knowledge, methodologies, practices and software to support individuals, organizations and society in the collaborative use of information technology.

Research in the area of collaborative computing is an integral part of the development of the office, school and government of the future. Current research centers within the Center include collaborative computing, knowledge management, and technology-supported learning. In the past five years, the Center has developed a synergistic partnership between university researchers and industry users through its industry relevant research and its structure. Research projects are developed and pursued with significant input from the industry partners.